Engineering Research Equipment Grant - Single Wafer Reactor

This equipment grant will provide a rapid thermal processing reactor in which one can perform multi-step processes in one chamber to achieve multi-layer based substrates.